Space Weather: A Search for the Cause of Steady Magnetospheric Convection

This project will determine a well-defined set of rules for identifying periods of Steady Magnetospheric Convection (SMC). An automated procedure will be established to go through a large database of satellite and ground-based data to identify SMC periods. Once a database of SMC periods had been generated the project will then utilize that database to perform statistical analyses on the conditions under which SMCs arise. If a clear set of solar wind and magnetospheric conditions can be identified as the generators of SMCs, an expert system will then be developed for making for detailed nowcasts and forecasts of space weather.